Neural Substrates of Facial and Lexical Emotion Using fMRI

9604231 Blonder Lay Abstract Identification and understanding of the emotional content of faces and language are essential part of human cognition and behavior. As yet, there is little understanding of the brain areas that underlie the interpretation of emotion expressed in facial expressions or in words. This project addresses this fundamental problem using functional Magnetic Resonance Imaging to map patterns of activity in the human brain associated with this process. A series of studies describe the neuroanatomical circuits that underlie the recognition of emotional content in facial expression and speech and examines how the brain organizes and processes different types of emotional information. The project exploits a powerful technological development in neuoimaging to increase our knowledge of how the normal human brain processes and analyzes emotional information.